Decision Makers' Cognitive Processes Depicted by a Covariance Structural Model

The primary objective of the project is to develop a competitive research proposal on "Decision Makers' Cognitive Process Depicted by a Covariance Structural Model." Support of the project will assist a well trained black social scientist to improve his research capability and to complete the planning and development of a regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.